Building Political Culture Again: Unification and the Political Integration of Germany's Young

The reunification of East and West Germany has brought back together two political cultures which had grown rapidly apart during the preceding forty years. The dramatic rejoining of political cultures provides a rare opportunity to assess the effects of the different political institutions of east and west on the divergent development of their political cultures. It also facilitates analyses of the development of a new and democratic political culture among German youth who grew up in the east. Of particular interest is the development in these youth of attitudes toward democracy and of democratic citizenship. This award contributes to the support of the first wave of a national survey of the political attitudes and beliefs of 3500 German youth drawn from both east and west. The study builds on a long tradition of research on attitudes toward democracy but provides the first opportunity to study intensively and in a controlled setting how political attitudes develop in response to different political environments. In addition to providing systematic evidence of the effects of the East and West German political systems on citizen's attitudes, this study will provide important baseline data for tracing changes in the political attitudes of East German youth as they become reintegrated into a united democratic Germany. When completed this study will provide a better understanding of the attitudinal underpinnings of democracy and of the prospects for developing democratic values in formerly authoritarian states.